Travel: Eleven Societies Travel Grants for Students, Independent Scholars, and Recent PhDs

This grant supports the attendance and participation of graduate students, early-career scientists, and independent scholars at thirty-eight Science and Technology Studies (STS) conferences organized by eleven STS societies over a four-year period. It does so by removing the financial barriers to entry that frequently prevent junior STS scholars from attending professional conferences. Grant beneficiaries will become better integrated in the international and interdisciplinary STS community by gaining access to new scientific networks, receiving feedback designed to facilitate publication, and disseminating their research findings.

This grant will also support the development of new STS scholars through professional development at conferences where they will encounter opportunities for engagement with senior scholars and potential mentors or collaborators. By supporting emerging scholars to participate in professional meetings of eleven societies the grant will support their pathway and networks to become educators, university administrators, and policymakers.